MRI: Acquisition of a Field Emission-Scanning Electron Microscope for Nanoscience Research and Education

CBET-0821370
Ramirez

Texas A&M University-Kingsville (TAMUK), a Hispanic Serving Institution, seeks funding to
acquire a Field Emission-Scanning Electron Microscope (FE-SEM) instrument to enable
research in nanoscience in environmental engineering and physical science and to enhance
current analytical infrastructure. This instrument will allow researchers in South Texas to
conduct research and educational activities of important local, regional and national needs.
Multidisciplinary research areas immediately benefiting from the use of the proposed FESEM
instrument are in the Departments of Environmental Engineering, Chemical Engineering,
Chemistry and Biology at TAMUK. The FE-SEM will be used in research activities related to the
National Science Foundation's mission and focus including 1) adsorption of hazardous air
pollutants onto engineered nanomaterials; 2) identification and exposure assessment to
manufactured nanoparticles in the environment; 3) characterization of sol-gel derived catalysts
applied for green energy; 4) structural characterization of micro and nano fibers from novel flash
spinning processes; 5) silica deposition in the calcareous foraminiferan ammonia parkinsoniana;
6) effects of particle aggregation/disaggregation and precipitation on the transport of fine
suspended sediments and contaminants in river systems; 7) high performance organic
semiconductors for field effect transistors; and 8) characterization of reverse osmosis
membrane damage and fouling.